2010 Symposium on Lepton Moments, to be held in Centerville, MA

The Symposium on Lepton Moments brings together the communities from atomic
physics, nuclear physics and particle physics that are interested in magnetic dipole
moments, electric dipole moments and the transition moments that could lead to
lepton flavor violation in lepton decays. With the apparent disagreement between
the muon magnetic dipole moment and the Standard‐Model theory, all of these
topics are at the forefront of the search in precision measurements for physics
beyond the Standard Model. Thus this meeting addresses key issues in physics: The
search for physics beyond the Standard Model; the searches for new sources of
violations of Charge Conjugation combined with Parity, which is necessary for the
predominance of matter over anti‐matter in the universe. These participant costs
will permit young scientists, graduate students and young postdoctoral scientists to
attend this meeting.